Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring

Winser E. Alexander
North Carolina State University (NCSU)
HRD-9816097
Over the past 20 years, Dr. Winser Alexander has successfully promoted the advancement of African American students, by providing sound advice and mentoring at the graduate and precollege levels. Dr. Alexander has successfully recruited African American students into graduate engineering resulting in enrollments of approximately 10 Ph.D. students each year from underrepresented groups over the last several years. The Department of Electrical Engineering at NCSU has had eight African American Ph.D. graduates over the last 10 years; Dr. Alexander has mentored all of them. Dr. Alexander is also involved in tutoring and mentoring African American high school students on a weekly basis.